SPARKS (Supporting Parents in Advocacy, Reform and Knowledge in Science)

9705649 Berkovits The Wildlife Conservation Society is developing and implementing a five-year science program for 420 parents and 210 teachers of children in grades K-8. Linked directly with school curricula and the new National Science Education Standards, the program will bridge the gap between parents and schools, and position the Zoo as a partner and intermediary to help parents and teachers improve the quality and quantity of science education. The program consists of four interrelated components: 1) A series of workshops that will prepare the 420 parents and 210 teachers to work in teams for better and more widely available science education; 2) A series of education projects that will enable workshop participants to teach thousands of other parents and educators about the importance of science literacy, the need for active parental engagement in children's education, and the crucial role that informal science institutions play in augmenting formal science instruction; 3) A series of four Science Advocacy Fairs at the Zoo that are expected to raise the visitor's consciousness on a large scale about the above issues; and 4) A symposium for educators from schools and informal science centers in the region to disseminate successful methods for involving parents in science education.